International Symposium on Advanced Research in Asynchronous Circuits and Systems, Salt Lake City, Utah, November 3-5, 1994

Research in asynchronous systems has had a resurgence in the past five years. Several breakthroughs distinguish this recent work from earlier efforts, and have made asynchronous operation a viable option for modern system design. CAD systems have been developed for asynchronous circuit design, asynchronous processors have been built and evaluated, and controllers and systems have been designed. Problems in hazard-free operation, formal specification and verification of designs are being actively pursued. The purpose of the symposium is to provide a forum where researchers may assess the current state of research in the field, and exchange ideas about present work in depth. The symposium is planned for November 3-5, 1994.